Riometry in Antarctica and Conjugate Regions

This project will continue and expand the study of the upper atmosphere, especially auroral phenomena, using photometry and riometric techniques. The PI has developed a new imaging riometer (relative ionospheric opacity meter) system called IRIS (Imaging Riometer for Ionospheric Studies). The first two IRIS's were installed at South Pole Station and Sondre Stromfjord, Greenland. A third IRIS will be installed at Iqiluit, NWT, Canada later this year. There are also broad-beam riometers operating at several frequencies at South Pole, McMurdo and Iqiluit as well as auroral photometers at South Pole and McMurdo. Iqiluit is the magnetic conjugate to South Pole. These instruments constitute a unique network with which to study auroral effects in both magnetic hemispheres simultaneously. The principal investigator is an internationally respected expert on the effects of precipitating electrons on the atmosphere.